U.S. France Cooperative Research: Field Dynamics in Random Media

9512975 Genack This three-year award supports U.S.-France cooperative research in condensed matter physics between research groups at Queens College, City University of New York, and University of Nice. The collaboration is led by Azriel Z. Genack in the United States and Patrick Sebbah in France. The objective of their research is to measure the intensity and actual field distribution in microwave propagation in disordered solids. They propose to relate their research to the interconnectedness of diverse phenomena such as atmospheric communication, medical imaging, and electronic conduction in disordered solids. The French theorists are experts in quantum chaos while the U.S. investigators are experimentalists with expertise in wave localization .